Upgrade of 400 MHz NMR Spectrometer for Faculty-Student Collaborative Research

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Wisconsin in Eau Claire will upgrade an existing 400 MHz nuclear magnetic resonance (NMR) Spectrometer. Specifically, the department will replace the console and acquire a pulsed field gradient amplifier with probe, and an inverse detection probe. This equipment will enable researchers to carry out studies on a) organometallic olefin polymerization catalysts; b) monitoring of amyloid fibril formation; c) oxidative degradation of azo dyes catalyzed by metalloporphorins; d) synthetic bioinorganic and organometallic chemistry; e) synthesis of fluorescent dyes; and f) supramolecular and liquid crystalline science.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.